Automatic Geophysical Observatories for Use in Antarctica

It is the purpose of this contract to procure, deploy and maintain Automatic Geophysical Stations for research use in Antarctica. The contract is for two totally self-contained, autonomous, unmanned stations, complete with data recording systems and satellite data links. The contract allows for additional priced options for the procurement of up to a total of six such stations.